WORKSHOP - Preservation of Geoscience Research Cores and Collections: The View from Academic Researchers, Indiana University, January 11, 2003

Workshop: Preservation of Geoscience Research Cores and Collections: TheView from Academic Researchers

EAR-0316648
Christopher G. Maples
University of Indiana

ABSTRACT
PI proposes to hold a workshop entitled "Preservation of Geoscience Research Cores and Collections: The View from Academic Researchers at Indiana University on Saturday, January 11, 2003. The workshop will emphasize the needs of the academic community relative to the recent NRC report entitled "Geoscience Data and Collections: National Resource in Peril". The workshop will examine the issues and concerns of this community and propose solutions to the problems surrounding the long-term storage of such materials.